NeTS: Efficient Routing in Semi-Deterministic Delay Tolerant Networks

Current networking protocols have been designed with the assumption
that an end-to-end path between source and destination is almost
always available. However, this assumption does not hold for an
entire class of wireless networks. In Delay or Disruption Tolerant
Networks (DTNs), lack of continuous connectivity, network
partitioning, and very long delays are the norm, not the exception.
Such networks have recently found applications in challenged
environments, such as space communications, military operations,
and sensor networks. Routing in DTNs is very challenging as it
must handle the time-varying and unpredictable availability of
links, long delays, and a dynamic topology.

This project contributes theoretical models and algorithms for
routing in DTNs with semi-deterministic mobility. In such networks,
node trajectory is either tightly controlled, but affected by random
deviations from the environment, or it is socially driven. In both,
opportunities for communication can be predicted using knowledge on
node mobility. These networks, underrepresented by current research,
have immediate applications in mobile sensing (e.g. littoral
underwater monitoring), disaster management, or in campus environments.
This research develops prediction models with Markov processes for
node mobility and methods for contact probability estimation.
Performance limitations and optimal parameters for the routing
protocols and algorithms are also investigated.
The research will produce a set of protocols suitable for operation
in conditions of sporadic connectivity and limited resources,
emphasizing local information exchange and adaptation techniques.
The protocols will be evaluated with detailed simulations at the
Florida Atlantic University Wireless and Sensor Network Laboratory.